Large-Scale Calculus Revision at Penn

9352824 DeTurck A full-scale revision of the entire Calculus program is being undertaken making extensive use of student projects drawn from scientific and business disciplines. The three main thrusts of the revision are (1) substantial reconstruction of the first and second year Calculus syllabi; (2) emphasis upon collaborative learning techniques; and (3) use of computation as a vehicle to encourage collaborative learning. The emphasis is on designing and implementing means of presenting new approaches to Calculus effectively on a large scale. To carry this out in the context of a large research university with 2000 students per semester taking Calculus, materials are being adapted from existing Calculus reform efforts. In addition, materials and support are being developed for faculty and students getting used to using computers to do mathematics and to incorporating problems from other disciplines.Some sections of the new courses are team-taught with Math Education faculty, assisted by secondary Math Ed students as a portion of their preparation for teaching. ***